Upgrade of High Pressure Mineral Physics Laboratory

0131874
Smyth

This grant provides partial support to upgrade the laboratory for high-pressure X-ray diffraction and mineral physics studies in the Department of Geological Sciences at the University of Colorado. The laboratory currently comprises a Siemens/Bruker 18KW rotating-anode X-ray generator, automated single-crystal and powder diffractometers, laser ruby fluorescence pressure measurement facility, X-ray precession cameras for crystal orientation, and three Merrill-Bassett type diamond anvil cells. The laboratory works in close collaboration with Hartmut Spetzler's group on Gigahertz Ultrasonic interferometry on combined X-ray and ultrasonic equation of state measurements of natural and synthetic high pressure minerals. The upgrade for the rotating-anode generator includes a new Mo anode, backup turbo pump, roughing pump, and vacuum valves and gauges. The upgrade for the single-crystal diffractometer system includes a control computer, LINUX workstation, and some salary support for adaptation and installation of new diffractometer control software. The upgrade of the powder diffraction system includes new computer and control software. The upgrade of the laser pressure measurement facility includes a safety door interlock system, computer upgrade, binocular microscope, and optical bench for a new basement lab facility required for laser safety. The upgrade of high-pressure diamond anvil cells includes two new cells, one four-pin Be seat cell and one wide-aperture carbide-seat high-temperature cell. The upgrade of the sample preparation facilities includes tools for preparation of oriented, faceted single crystals for ultrasonic studies, and facilities for preparation of high-pressure synthesis runs in collaboration with the group at Bayerisches Geoinstitut in Bayreuth, Germany.
***